CISE Research Instrumentation: Research Instrumentation in Support of VLSI Design and Testing

9320440 Wolpert This award will provide funds to purchase a high-performance workstation and laboratory bench equipment to facilitate the design and testing of elaborate custom integrated circuits in support of a number of research projects including the following: (1) Examination of a Neuronal Algorithm Using VLSI-Based Models: This project is an evaluation of the singularity of the relationship between the hardware and software of biological neural networks. It involves implementing a custom VLSI-based model of a well-documented network of biological neurons and comparing the electrical signals resident in this network with those of its biological counterpart. (2) A Multichannel Sensor for Extracellular Potentials: The objective of this project is the development and evaluation of a multipolar nerve cuff electrode that can not only sense impulses from outside of a nerve bundle, but discern their point of origin within the fiber. In the final phase of this study, the electrodes will be installed and tested on a preparation of lateral eye and optic nerve of Limulus, the horseshoe crab. (3) An Intelligent Signal Detection System: The main objective of this project is to study and develop a generic, modular and expandable software/hardware platform interfaceable with the existing monitoring systems where many visions can be developed, tested, evaluated and integrated. *** <o\ # CONTROL HLP @ j N H WIN COM :X T BOOTLOG TXT EX k 9320440 Wolpert This award will provide funds to purchase a high-performance workstation and laboratory bench equipment to , . $ $ $ $ G Times Symbol " Helvetica Chicago Times New Roman & Arial 5 Courier New R ZapfDingbats Palatino Greek GenMath MathMeteor MT Extra " e e 6 Wolpert/Maine Mark Purvis Mark Purvis